Program management support for the integrated, multidisciplinary Bering Sea Project: Maximizing return on investment

This award will support program office and synergistic activities to conclude an integrated, multidisciplinary research program in the eastern Bering Sea, funded through a partnership between the National Science Foundation and the North Pacific Research Board (NPRB). Underway since 2007, the Bering Sea Project has involved dozens of individual research projects and more than 100 investigators, all working toward the goal of improving our understanding of how this highly productive (and economically critical) marine ecosystem may respond to climate change, particularly as mediated through changes in seasonal ice cover. This award seeks to maximize the return on NSF’s and NPRB’s investment during the final two years of the program, through several key activities deemed most critical to capturing and communicating the program's scientific accomplishments. The project would provide funds for 1) publication of thematic special issues of the scientific journal Deep-Sea Research II, 2) travel for members of the Bering Sea Project Science Advisory Board (SAB) to one in-person meeting in Arlington, Virginia and a scientific meeting (the 2014 Alaska Marine Science Symposium), and 3) travel and meeting expenses associated with a capstone open science meeting in 2014. From the start, the Bering Sea Project has incorporated a diverse suite of communication, outreach, and education activities to convey the scientific discoveries of the program to stakeholders, teachers, students, and the public. Funding would support print and electronic publication of short "headlines" scientific synopses, a longer Bering Sea Project magazine, and a programmatic "lessons learned" article.